CAREER: Using Critical Path Length as a Practical Peformance Metric

The goal of this research is to investigate the use of critical-path length to accurately predict performance in several domains, including wide-area multithreading, microprocessor architecture, and high-performance filesystems. For wide-area multithreading, the strategy is to develop conservative work scheduling algorithms for a distributed-RAM model of computation, and to demonstrate that the critical-path length can be used to predict the performance of the resulting system. For microprocessor architecture, the strategy is to gain a fundamental understanding of the average parallelism of ordinary serial C programs by compiling them into dataflow graphs and measuring their critical-path length. Given that understanding, the effectiveness of hardware mechanisms can be evaluated. For high-performance filesystems, the strategy is to use critical-path length to measure the average parallelism of a filesystem workload. The educational component of this project includes teaching how to measure and achieve high-performance using a critical-path length methodology. A new course in advanced computer architecture is being developed which will focus on microprocessor performance, and a senior/graduate-level operating systems course will be reoriented to emphasize performance. Eventually, a course on algorithmic parallel computing will be developed.***